Experimental Studies of Convection in the Earth's Core

Aurnou
EAR-0229791

This proposal requests funding for work in a new experimental fluid
mechanics laboratory at UCLA. The lab will utilize two, new powerful
diagnostic techniques to provide high-resolution, quantitative velocity
measurements of simulated convection in the Earth's outer core. The
results will test long-held theories regarding the properties of
convective flows in core fluids and will provide a detailed
characterization of flow dynamics at nearly planetary parameter values.
The first project will use the recently developed technique of acoustic
Doppler velocimetry to study convecting liquid metals, which have
physical properties similar to that of the molten outer core. The
results will test the linear stability theory of rotating
magnetoconvection, the foundation of modern dynamo theory. Established
by Chandrasekhar in the 1950's, this stability theory has only undergone
a single prior experimental investigation that reached the asymptotic
regime. The second project will utilize the optical technique of
particle image velocimetry (PIV), applying it to a rotating spherical
shell of convecting water, a set-up that mimics the dynamics and the
geometry of the outer core. PIV will provide, for the first time,
quantitative measurements of the flow fields (velocity, vorticity and
helicity) that are believed to be essential components of the geodynamo,
but have never been measured adequately by experimental means.
Furthermore, the experimental design will enable PIV to measure
convection in the polar regions, which have not been studied extensively
but now appear to be significant. Together, these state-of-the-art
acoustic and optical velocimetry techniques will provide benchmarks for
numerical and theoretical studies of core convection and the geodynamo.
They will also generate the highest resolution experimental convection
data to date for interpreting geomagnetic and seismic observations of
the deep Earth.